Magnetic Resonance Imaging with Laser-Polarized He-3 and Xe-129 of Biological and Non-Biological Systems Using High Power Diode Lasers

9612244 Happer The PIs describe an interdisciplinary program to investigate a revolutionary new technology employing laser-polarized gases for greatly enhancing the magnetic resonance images (MRI) of biological cavities such as lungs and sinuses, as well as nonbiological systems which as voids in ceramics, etc. This technique was recently used to obtain the first MRI images of the gas space of a human lung by a collaboration between researchers at Princeton and Duke Universities. The method uses advances in optical spin polarization made possible through the understanding of spin exchange interactions between alkalimetal atoms and noble gas nuclei developed at Princeton. To make this a practical, low cost and widely applied technique for imaging both biological and non-biological systems, significant improvements in our understanding of the physics of optical spin polarization, as well as in the high power laser diodes necessary to accomplish this task are needed. In this project, researchers at Princeton and the University of Wisconsin will concentrate on the demonstration of very high power, low cost, long-lifetime Al-free diode laser arrays with linewidths sufficiently narrow to efficiently polarize He-3 and Xe-129 for a wide range of MRI applications. The laser development includes fabrication of novel MQW structures with improved carrier confinement, as well as distributed Bragg reflector and external cavity structures to achieve narrow linewidths, will build on existing strengths at both Princeton and UW-Madison in high power laser diodes. To improve the MRI technique, the PIs will explore the possibility of imaging laser polarized gases dissolved in blood and other liquids. Methods for increasing the efficiency of the spinexchange process, and for accumulating large quantities of spinpolarized gases will be investigated. ***